The Quantum Dynamics of Molecular Interaction

In this project Profs. W.R. Gentry and C.F. Giese of the University of Minnesota will conduct basic research on the dynamics of molecular energy transfer at temperatures in the range from 1K to less than 1 mK, and will perform crossed beam studies of reactions involving hydrogen atoms with methane and silane molecules, as well as study reactions on weakly bound clusters. %%% Previous studies at extremely low temperatures have been conducted nearly exclusively in condensed phase systems. The present research at ultra low temperatures is devoted to theinvestigation of phenomena of bimolecular collisions in the gas phase. The extremely low kinetic energies are expected to reveal the highly quantum mechanical nature of the translational, as well as internal, motions under such conditions. The isotopic exchange and substitution reactions involving hydrogen atoms with methane of silane molecules or their isotopic variants at elevated temperatures has revealed unexpected behavior. The present research under low temperature beam conditions will provide critical data to assist in the understanding of these processes. The work on cluster reactions is directed toward the understanding of the elementary dynamics of cluster growth, exchange and metathesis reactions as function of cluster size, composition, and energy available.